U.S.-India Workshop on Heat and Mass Transfer and Biannual ASME/ISHMT Conference, Guwahati, India, January 4-6, 2006

0527047
Garimella
This award provides support for US thermal scientists and engineers to participate in six research workshops planned around the biannual ASME/ISHMT Heat and Mass Transfer Conference, which will be held at the Indian Institute of Technology, Guwahati, India, January 4-6, 2006. This conference is the premier venue for disseminating research findings for India's thermal sciences and engineering community. The American Society of Mechanical Engineers co-sponsors this event to enhance interactions between Indian and US thermal sciences researchers. The interactive workshops in six topical areas are designed to seed US-India research collaboration in areas of mutual interest.

The US delegation includes 6 senior scientists, 4 postdoctoral researchers, and 10 graduate students. The workshops, which target fundamental areas in heat and mass transfer, are expected to enhance US-India cooperation on future thermal technologies, share information and build institutional bridges, and promote educational and cross-cultural experiences for all participants. US delegates include women and members from under-represented groups that are early-career faculty, graduate students, or senior researchers. The report on the workshops and conference will be disseminated through a website so that heat transfer researchers worldwide will be able to access this information.